U.S.-Chile Workshop on Reproductive Biology of South AmericaVertebrates: Aquatic and Terrestrial (Rio de Janeiro, Brasil, August 6-11, 1989.)

This award partially supports an international workshop on the reproductive biology of South American vertebrates to be held in Rio de Janeiro, Brazil from August 6-11, 1989. Support will be given to U.S. and Chile an participants who will meet with Brazilian scientists supported by the World Wildlife Fund. It will be held in conjunction with the XIII Federative International Congress of Anatomy in Rio. The U.S. organizer is William Hamlett of the Medical College of Ohio at Toledo and his Chilean counterparts are four researchers from the University of Antofagasta and the University of Chile in Santiago. The workshop will focus on reproduction in South American vertebrates, rare or endangered, and on a potentially economic species, the shark. All the major vertebrate groups will be discussed. This is an opportunity for South America scientists active in vertebrate reproduction to meet with U.S. scientists and other participants at the Congress for an exchange of ideas and information. There is also the potential for future cooperation in this area, an important goal of the Science in Developing Countries Program.